Aquatic Science Teacher Institute For Master Teachers Of "Living in Water"

"Living in Water" is a hands-on instructional program in life science for upper elementary/middle school grades. Dr. Valerie Chase, a biologist and educator at the National Aquarium in Baltimore, developed this program with support from NSF's Instructional Materials Development Program. Teachers in the Chesapeake Bay region have been given access to training workshops for a number of years, and Dr. Chase now plans to offer training to teachers from across the country. Summer workshops would be offered at Towson State University for three years, providing training for 72 "regional master teachers". These workshop participants would learn to teach "Living in Water" in their own classrooms, and they would gain a deeper understanding of the biology, chemistry, and physics that underlie the activities in the curriculum. Each of these teachers would provide training to other teachers in their home region. This national dissemination project would 1) train teachers as teacher-trainers for an NSF-supported curricular unit, 2) establish a national newsletter for users of the unit, 3) support an NSTA short course to introduce the unit to a wide audience, and 4) result in an update of the unit based on input from an Advisory Board and the expanded pool of users. "Living in Water" is a unique and high quality instructional program, and these teacher training activities will disseminate it to classrooms across the country. Cost sharing represents 46% of the NSF contribution.